Conference on Partially Hyperbolic Dynamical Systems

This award is for the partial support of a conference in the field of Dynamical Systems with concentration on the study of partially hyperbolic diffeomorphisms.